Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring

Dr. David Bynum has been actively involved with enlarging programs of excellence and success for underrepresented students since 1993. Through his efforts, he has helped to change the campus environment. He has done a lot for the community and the institution; working with students at all levels of the ladder. His programs have become institutionalized, and have reached almost 200 community college students. He has received grants from the Howard Hughes Medical Institute, NIH and has created the Long Island Group Advancing Science Education, an umbrella group that has received local, state and national attention and awards.